Improved Electron Density Modification Algorithms for Macromolecular Crystallography

Elucidation of the detailed molecular structures of proteins and viruses by x-ray crystallography has provided a wealth of information concerning relationships between structures and activities. Although the number of known protein structures is now quite large, the number of virus structures known is still rather small, as a result of the enormous amount of human, experimental and computational resources consumed in such an investigation. A step that is particularly crucial in determining virus structures, and some protein structures, is a computational procedure called electron density modification. It is not uncommon however, for this procedure to converge to an incorrect solution. This is referred to here as stagnation. It is then necessary to collect additional experimental data, usually from heavy atom derivatives. It is not always possible to prepare derivative crystals of sufficient quality, in which case determination of the structure is precluded. Even if derivative crystals of sufficient quality can be prepared, their preparation, and the subsequent collection and processing of the additional diffraction data, can consume one or more person-years of effort. This proposal is concerned with developing new density modification algorithms that are less prone to stagnation. These new algorithms will be based on techniques that have proved successful in overcoming stagnation problems in other areas of image reconstruction such as in astronomy, and will be adapted here for use in macromolecular crystallography. The algorithms will be implemented as computer programs and applied to the determination of virus and protein structures that are currently under investigation. The algorithms will be designed so that they can be implemented on massively parallel computer architectures, to take full advantage of emerging computer technologies. The impact of successful completion of the project will be substantial. (1) It will provide a route for the determ ination of structures that are resistant to solution by current techniques. (2) It will offer the possibility of true ab initio structure determination of icosohedral viruses. (3) In cases where structure determination is currently possible only by the slow and tedious collection and analysis of heavy atom derivative data, it will reduce the effort involved (by as much as one or more person-years per structure) by decreasing the amount and quality of derivative data required. The effect will be a more rapid, efficient, and cost-effective determination of macromolecular structures, and a larger pool of structures available for study.